SBIR Phase I: Enchanced Holographic Data Storage in Ferroelectric Photorefractive Media

*** 9560467 Wilde This Small Business Innovation Research (SBIR) Phase I project will examine enhanced holographic data storage in ferroelectric photorefractive recording media. This is thought to be a promising solution to an input/output bottleneck between high-speed microprocessors and mass storage peripherals. Although many necessary optical systems components are now available, a suitable volume recording medium is still lacking. This research will explore the use of domain screening in a ferroelectric medium to improve dynamic range and and other features. When combined with two-photon recording for nonvolatile readout, this approach to a storage material is expected to provide very high performance. If the approach is feasible, it could lead to significant advances in database management, high-definition digital video, and new interactive multimedia software for the entertainment industry, education, and business. ***